Mode of Action of the Insect Hypertrehalosemic Hormone

The research will investigate biochemical mechanisms related to induction of a cytochrome P450 enzyme in the cockroach fat body by the hypertrehalosemic neurohormone (HTH) is an insect protein hormone secreted by nerve cells that stimulates the fat body (=insect "liver") to convert carbohydrate stores to blood sugar (trehalose). HTH also stimulates expression of a gene for a new member in a family of P450 enzymes traceable in evolution history to the time of divergence of bacteria and higher organisms. The significance of HTH-dependent P450 will be assessed as it relates to fat body metabolism, and the P450 gene will be isolated and structurally characterized to identify how HTH controls its expression. Cockroaches are one of the oldest living organisms, and since this P450 is one of the oldest genes, studies on HTH regulation of P450 gene expression in cockroach fat body will illuminate a fundamental cellular regulatory process that dates to the time of the origin of higher animals. From a practical view, P450's are the means by which all animals, including man, metabolize foreign chemicals such as drugs, toxins, carcinogens and insecticides. Since many of these compounds are neurotoxic, they may stimulate neuroendocrine cells to release hormones which induce P450 synthesis for metabolism of the toxicant. Therefore, studies linking neurohormones with P450 synthesis may provide a fundamental explanation for both man's response to carcinogens and insect resistance to insecticides.//